Participant Support for a Penrose Conference Entitled: Development and Evolution of Foreland Basins, to be held in Spain, October 1991

This action provides partial participant support for a Penrose Conference entitled "Development and Evolution of Foreland Basins" to be held in Spain mid-October, 1991.